Indo-U.S. Joint Workshop on Materials Processing, Thin Filmsand Applications, Bangalore, India, December 1988, Award in U.S. and Indian Currencies

Description: This project supports participation of 12 U.S. scientists in an Indo-U.S. joint workshop on material processing, thin films and applications. The objectives of the workshop are to identify fields of research of mutual interest in the area of material synthesis, process development and applications, and to plan outlines of joint research projects by institutes in the two countries. Topics to be covered include: Deposition technologies with emphasis on plasma assisted techniques; material properties for thin and thick films including tribological, optical, optoelectrical, and semiconductor properties; and current technological applications of candidate materials in specific fields, including mechanisms of failure of coatings and relation to material properties. Scope: The workshop is in an area of great interest to the U.S. and India and where applications are being developed worldwide at a rapid rate. The topics of the workshop are current, and the U.S. P.I is a leader in research in this field. Other proposed U.S. participants are well established researchers who, along with the Indian counterparts, should ensure a successful outcome of the meeting. A report of the results will be produced.